RUI:Biodiversity and Ecology of Tree Canopy Biota in the Great Smoky Mountains National Park

The objectives of this proposed research project are to:

1- complete the first comprehensive survey and inventory of tree
canopy biodiversity from three meters to the upper canopy for biota
represented by myxomycetes, other mycetozoan groups (protostelids and
dictyostelids), fungi, mosses, liverworts, lichens, ferns, selected
insect groups, and molluscs in the Great Smoky Mountains National
Park

2- assemble a multidisciplinary research team of experts who will
collect, identify, and curate this diverse group of organisms and
serve as mentors who will give special lectures, slide shows, hands on
identification of specimens, and field demonstrations to aid students
in the recognition of specimens and collection of samples;

3-compare the assemblages of tree canopy organisms with those
found on ground sites;

4-search for species new to science in all of the targeted groups
of organisms;

5- sample for biota along vertical transects of individual trees at
different heights to quantify the association of the relative species
composition, abundance, and diversity of these assemblages with the
available environmental characteristics (host tree species, vegetation
type, height class, light, pH, and humidity);

6- compare the tree canopy-targeted groups and assemblages on
different tree species;

7- provide research experiences for students that will enhance
opportunities for postgraduate study.

This study will determine if the biota (myxomycetes, protostelids,
dictyostelids, fungi, mosses, liverworts, lichens, and ferns), of
species assemblages, and communities found on the bark of living trees
and vines above three meters differ from those found in habitats on
ground sites. This project will assist in determining if these
assemblages and communities can be predicted based on measured
environmental parameters that will provide a basis for future
comparisons with forests that are harvested using forestry management
strategies. The methodology used to obtain samples from the tree
canopy will be the double rope climbing technique that will enable the
collector to access the treetops. Collections will be made from the
tree canopy and also from moist chamber cultures in the laboratory.
Statistical analysis of species assemblages identified from each tree
will be compared.

These species assemblages and communities are important since they are
the first species to show signs of environmental degradation such as
acid rain, sulfur and nitrogen dioxide deposits, and ozone. Data
generated from this project will help park managers assess the
environmental impacts of human factors not only in old growth forests
but with any forest vegetation type. This project will involve four
RUI (Research in Undergraduate Institutions) institutions collaborating in
the study of the different targeted groups of organisms with an
international component of experts from Norway, Russia, and Lithuania
who will provide species identification for specific groups of
organisms. Women and minorities who are underrepresented in field
biology research will participate along with volunteers, park interns,
undergraduate and graduate students, and key project personnel.
Results will be highlighted in park interpretive exhibitions, website
outreach, news media coverage (print and television), publication of articles in
popular magazines, in refereed journals that will send a powerful
conservation message for biodiversity.